Relativistic Electron-Photon Interactions in the Atomic Field

Several investigations into processes of high energy atomic physics are proposed. All of these are releated to understanding the role of relativity, retardation , higher multipole efeects and electron correlations in ionization, and scattering.